Postdoctoral Research Fellowships in Chemistry

Dr. Kevin Williams has been awarded a Postdoctoral Research Fellowship in Chemistry. Dr. Williams' doctoral degree was from the University of Pittsburgh under the supervision of Professor Julius Rebek. Dr. Williams intends to continue research at Harvard University under the sponsorship of Professor George Whitesides. Dr. Williams' area of postdoctoral research will be the synthesis of molecules capable of molecular recognition and their application to chemical synthesis. The synthesis of the nucleoside antibiotic, tunicamycin, will be developed using a combination of enzymatic and chemical synthetic approaches. The Postdoctoral Fellowships in Chemistry Program is viewed as an important infrastructural program designed to broaden the knowledge and experience of new Ph.D's and attract them into meaningful careers in contemporary chemical research and teaching.